Easily Manufacturable Implementation of Large Area Defect Tolerant IC's

This project is developing techniques for fabricating large-area integrated circuits (IC) on standard IC fabrication lines. The circuits under consideration are 10 to 50 times the area of current circuits. The researchers are characterizing manufacturing defects on integrated circuits, and analyzing these to predict chip yields. From these predictions they can select among various techniques for on-chip reconfiguration for defect tolerance.